Collaborative Research: Conference: National Association of Geoscience Teachers (NAGT) Early Career Geoscience Faculty Workshop

This award will support an annual workshop organized by the National Association of Geosciences Teachers (NAGT) to bring new geoscience faculty together for the Early Career Geoscience Faculty workshop. During the five-day workshop, experienced facilitators will help participants integrate evidence-based teaching, research and service practices into their careers. After the workshop, NAGT will offer follow-on activities to continue professional development. The workshop will impact early career faculty, their students and the geoscience workforce by developing well-prepared teachers and mentors, supporting student success and producing a strong workforce for the future.

The Workshop for Early Career Geoscience Faculty: Teaching, Research, and Managing Your Career is a long-running program with a successful track record of providing high-impact support for more than 1200 early career faculty in the atmospheric, ocean, and solid Earth sciences. Past participants report that the discipline-specific nature of the workshop make the practices easy to adopt. The majority of participants report that their confidence to succeed in their academic careers increased somewhat or dramatically as a result of their participation. Given the prior success of the workshop and the ongoing need for support of early career faculty, NAGT will continue to offer the Early Career Workshop for geoscience faculty over the next three years. Workshop sessions will be updated to reflect current evidenced-based practices and better integrate the concepts into the work and responsibilities of early career faculty. In addition, to extend the support and community offered by the workshop, follow-on sessions will bring together participants from the three previous years to further expand and strengthen the community of practice. Through evaluations, reflections, and interviews, the team will determine the impact of the workshop and follow-on activities on participants, advancing knowledge on how in-person disciplinary professional development combined with follow-on virtual professional development can strengthen a community of practice for early career faculty.